MeV-Ion Damage in Electronic Materials

9318931 Tombrello The damage left by MeV ions in electronic materials is important in many respects. The ability to perform materials modifications such as deep implantations into III- V semiconductors, and to remove residual crystal damage without disturbing the electronic modification and compositional mixing that were the intent of the ion bombardment depends in an essential way on knowledge of the processes that created the damage and the resulting character of the irradiated material. The proposed research focuses on these basic issues. Our approach is to produce ion damage in crystalline samples of electronic materials (insulators, compound semiconductors, highTc superconductors, and a few special metals) and to study the damage distributions by a variety of techniques; for example, the use of channeling RBS to deduce the track radii and damage distributions. We have developed a model of the track-damage process that shows considerable promise; some of the initial observations will test this model's validity. %%% The properties of electronic materials can be modified in controlled ways by bombarding them with high energy(MeV) ions. In some cases this irradiation is used to implant foreign atoms deep in the material to tailor its local electronic properties. In other cases the damage itself may cause beneficial changes, for example, improving the current- carrying capacity of superconductors. This research project expects to increase our basic understanding of the damage produced by such bombardments so that we can design, and more efficiently realize desired modifications of electronic materials for gaining improvements in the general performance of advanced devices and integrated circuits used in computing, information processing, and tele communications. ***